Neuronal Dynamics and the Basal Ganglia

Terman

The basal ganglia are a group of nuclei that play an important role in
the generation of movement. Dysfunction of the basal ganglia is associated
with movement disorders such as Parkinson's disease and Huntington's
chorea. Structures within the basal ganglia have in fact been the target
of recent therapeutic surgical procedures including pallidotomy and deep
brain stimulation. Numerous experiments have demonstrated that neurons
within the basal ganglia display a variety of dynamic behaviors; moreover,
patterns of neuronal activity differ between normal and pathological
states. Neither the origins of these neural firing patterns nor the
mechanisms that underlie the patterns are understood. The primary goals of
the project are to develop detailed computational models, based on
experimental data, for basal ganglia activity and to develop mathematical
tools for analyzing these models. The investigator systematically studies
mechanisms underlying complex activity patterns found in a broad class of
excitatory-inhibitory neuronal networks. These include a recently
constructed model for neurons within the so-called indirect pathway of the
basal ganglia. He also uses geometric, dynamical systems methods to
explore how these networks transform incoming firing patterns.

The investigator develops a computational model for neuronal activity
in the basal ganglia. The model is used to formulate and test hypotheses
concerning the functional role of the basal ganglia in both healthy and
diseased states. As it evolves, the model serves as a tool that can be
used to test hypotheses about the function basal ganglia, the pathologies
that develop in motor disorders, and the mechanisms through which
therapeutic interventions such as deep brain stimulation (DBS) may prove
effective. In particular, a central aspect of this research is to test
hypotheses about how DBS reduces parkinsonian motor symptoms. This may
lead to new strategies by which DBS can be applied. Topics in this project
present tremendous opportunities for cross-disciplinary seminars, workshops
and collaborations. The principal investigator has been very active in the
training of undergraduate, graduate, and postdoctoral students. He has
organized numerous workshops at international conferences and has lectured
at several summer educational programs. A primary goal of these activities
is to help nurture a community of scholars from different disciplines
involved in the mathematical biosciences.